Instrumentation for a Nonscience Major Chemistry Course

A chemistry course has been designed specifically to address the general science education of students majoring in non-science fields. The focus of the course is science literacy with the laboratory emphasizing the investigative nature of science. An important component of the laboratory experience is an introduction to chemical instrumentation. This project utilizes spectronic 20's for laboratory experiments. The institution is matching the NSF grant with an equal amount of funds.